CAREER: The symplectic category, Floer field theory, and relations to gauge theory and topology

Abstract

Award: DMS-0844188
Principal Investigator: Katrin Wehrheim

This award is funded under the American Recovery and Reinvestment
Act of 2009 (Public Law 111-5).

This research project addresses several areas within symplectic
topology and its interaction with gauge theory, complex geometry,
and low-dimensional topology. Lagrangian morphisms in the
symplectic category are viewed as morphisms between manifolds
that are not necessarily symplectomorphic, but their geometric
composition is generically singular. A previous project
partially resolves this problem, with consequences including the
construction of invariants for three-manifolds and knots; the
next goal is to fit these invariants into a framework of
topological quantum field theory, and another goal is to extend
the existing framework to a refined Fukaya category, leading to a
tool for mirror symmetry proofs. An ongoing project on the
Atiyah-Floer conjecture will continue, and more speculative work
will consider non-squeezing effects in PDE flows from an
infinite-dimensional symplectic point of view.

The research projects described in this proposal concern
symplectic geometry, the geometric structure that lies behind the
Hamiltonian formulation of mechanics. Recent applications of
ideas from symplectic geometry include invariants that help to
distinguish one three-dimensional space from another. Broader
impacts of this project concentrate on promoting women in
mathematics, and feature both a conference at MIT on women in
mathematics that is aimed at junior researchers and Girls' Angle,
a math club for girls that is based on close informal interaction
with female mentors from mathematical areas. See
http://www.girlsangle.org/ for more information.